Methodologies for Distributed Database Design

Research on the design of distributed databases is proposed. We have already investigated in detail the problems of vertical and horizontal fragmentation of data and their redundandt and nonredundant allocation in a distributed environment. With the present proposal, we plan to extend our research in the following areas: a) Integrate the present work into a comprehensive methodology by combining the fragmentation and allocation schemes. Refine existing models by incorporating further details of transaction processing and system overheads. Study the effect of network topology and communication costs. b) Investigate models for optimal refragmentation and reallocation with possible replication. Develop design heuristics. c) Investigate the development of design tools, user interaction, graphic support, etc., to enable designers to apply the design methodology in practice to realistic problems. In particular, evaluate the applicability of design heuristics in a expert- system like environment to achieve fairly acceptable solutions to the design problem.